Detailed Chemistry of OH, C2, and CH in Rich Hydrocarbon Flames

The objectives of this research are the identification of the dominant processes producing and consuming hydroxyl, carbon dimer, and hydrocarbon radical and the chemistry leading to the chemiluminescence of these species and determination of kinetic rate constants, where possible, for the participating reactions. A suitable series of rich acetylene/oxygen/nitrogen flames which burn stably and cover a wide range of stoichiometries with temperatures ranging from about 1800 to 2500K will be established. The measurement program will consist of characterizing the laminar, one-dimensional burnt-gas flows above a flat flame burner. Each measured parameter will be monitored at several points along the hot gasprofiles corresponding to times of 0.25 to 5.0 ms from the reaction zone. Laser-induced fluorescence will be employed to monitor OH, C2, and CHconcentration variatons, and Na/Li measurements will be made for H-atomconcentrations. Chemiluminescence of OH, C2, and CH will be followed inemission along each flame profile. Flame temperatures will be measured by the sodium line-reversal method.